Minority Postdoctoral Research Fellowship for FY 2002: Third Year Extension

This action continues funding for a third year for a Minority Postdoctoral Research Fellowship. The research focuses on the regulation of reproductive development in nomadic finches, with emphasis on the neuroendocrine basis for the extent to which species adhere to a strictly seasonal schedule of breeding.